Spin-Oriented Studies of the Nucleon and Nuclear Systems

9504847 Comfort Research will be carried out in pion charge exchange and elastic scattering reactions at the Los Alamos National Lab pion beam facility, and in studies of the nucleon and few-nucleon systems using the electron scattering facilities at MIT/Bates and at NIKHEF in Holland. The pion data will be used to measure chiral symmetry breaking effects and give insight into the quark structure and dynamics of the nucleon. The electron scattering work will focus on deformation of the nucleon, charge structure of the neutron, flavor structure of the nucleon, and the structure of few-nucleon systems. These experiments have high priority within contemporary nuclear physics. Development, construction, and utilization of major state-of-the-art equipment is integral to this activity. Education of graduate students is a strong component in every aspect of this grant. ***